Resonant Diffraction in Semi-Insulating Multiple Quantum

The objective of this proposal is to combine the advantages of holographic image processing in photorefractive semiconductors, with the resonant enhancement of electro- optic properties using quantum- confined excitons. This objective will result in the first systematic study of semi-insulating multiple quantum wells and their application to image processing. Significant resonant enhancement of photorefractive diffraction is possible. Semiconductor already have the advantage of fast device speed. The quantum wells must be semi-insulting to allow spatial modulation of electric fields. In the proposed research, multiple quantum well structures will be grown by molecular beam epitaxy and will be made semi-insulating by ion implantation. The differential transmission of wavelengths that are near the fundamental absorption of the quantum wells will be measured as an alternating electric field is applied across the quantum wells. Holographic gratings will be imposed on the wells using the interference of two coherent, low-power, cw laser beams that can be turned continuously through the fundamental absorption. The research has significance because it will yield image processing devices that are limited in resolution only by diffraction, are optically addressed and controlled, and require very small operation energies.